Elementary, Secondary, and Informal Education: Math and Science Teacher Enhancement Project

This project will develop six mathematics and six science graduate level courses. The goal is to provide science and mathematics content for teachers with elementary certifications who now teach at the middle school level. Each summer participants will take either two math or two science courses during an intensive four-week program. It is expected the same participants will return for three years, eventually taking all six courses. 150 teachers will be served over a three-year period. Teachers will receive follow-up support through the internet and/or on-site support. Competitive $500 grants will be available for supplies and travel. In addition, the PI will establish a professional development support group, the Northeastern Oklahoma Math and Science Teacher Association (NOMSTA).